LSAMP: Islands of Opportunity Alliance

Project Summary
The Pacific region has a rich treasury of people from diverse backgrounds who are
unfortunately underrepresented in the sciences, but who have great potential to contribute
to society in STEM areas if the barriers and obstacles that exist are ameliorated and
appropriate opportunities are provided to encourage students success. Special barriers
include isolation, often inadequate resources for secondary level science education,
insufficient ability for remediation of science and mathematics skills in colleges, and a
resulting "leaky pipeline" of students from underrepresented groups who graduate in the
STEM disciplines. We propose establishment of an Islands of Opportunity Alliance
within the Louis Stokes-Alliances for Minority Participation Program of NSF to help
staunch the leaks in the pipeline through fulfilling four specific objectives.
Our first objective is to set up Alliance activities that will improve recruitment of
underrepresented students into STEM majors at Alliance schools through the
establishment of bridge programs, improved articulation agreements for science courses
among Alliance campuses, and creation of targeted recruitment activities. Our second
objective is to provide research and/or internship experiences for these undergraduate
students in STEM fields. Our third objective is to improve retention of underrepresented
students through graduation with a baccalaureate degree in STEM fields through
improved advising, mentorship programs, peer tutoring, academic skills workshops,
establishment of an annual Alliance conference for students and faculty, and creation of
communication outlets for Alliance members, including a newsletter and web site. Our
fourth objective is to improve instruction in STEM fields through faculty development
including cultural awareness workshops, summer research opportunities, bown bag
seminars and new faculty orientation workshops.
Intellectual Merit
The Islands of Opportunity Alliance builds upon the successes of past and current LSAMP
Programs throughout the country, utilizing practices that have been shown to best
accomplish the primary goal of increasing graduation rates of underrepresented students
in STEM fields. The Alliance has adapted these best practices to the unique cultural and
geographic setting of the Pacific region, utilizing the extensive scholarship on crosscultural
communication and on learning styles of islander peoples, and administrative
structures that have succeeded in spanning the vast distances between islands.
Broader Impact
Hawaii and the Pacific region in general spans a large proportion of the globe, having
great strategic, economic, and cultural significance for the nation. The people of the
Pacific are an important resource for the U.S. who can provide greater contributions to
economic, intellectual and scientific growth at local and national levels. The Pacific
peoples have used native scientific principles to navigate over thousands of miles of
ocean in what may be considered one of the wonders of human achievement. They have
much more to offer the world in the coming century.